Microlayer Polymeric Composites

This research aims to study processing--solid state structure-- property relationships in microlayer (50 to 1000 layers) polymeric composites. Dow coextrusion technology will be used for the production of microlayer systems. Polymers of widely dissimilar solid-state structures and properties will be combined into microlayer structures, thereby producing a composite system with the desirable features of each component. In some instances, further property enhancement will be achieved by uniaxial and biaxial orientation in a post-processing procedure. The complex behavior of these composite systems will be analyzed in terms of heirarchical levels of structure. The dependency and evolution of properties from these interactive hierarchical levels will be elucidated. In particular, the effects of layer thickness and adhesion between layers will be analyzed. Polymeric materials selected for this study are chosen with attention to unique advantages that are achievable with the microlayer process. Tough structures with coupled properties, such as selected light transmission or shielding, differential barrier and transport properties or piezoelectric response, will be investigated. By using microlayer processing of highly dissimilar polymers in combination with the hierarchical approach to solid-state structure and property analysis, a new class of polymeric composite systems will be examined.